Dynamics of Electron Hopping and Translational Diffusion in Monolayers at the Air/Water Interface

The modelling of organized molecular systems such as biological membranes, using monolayer assemblies at the air/water interface, forms the subject of this research project supported by the Analytical and Surface Chemistry program. Electron hopping in organized multimolecular structures, and lateral translational diffusion of molecules on the water surface are the two main topics of investigation in this work. Langmuir-Blodgett techniques, Brewster angle microscopy, and 2D electrochemistry involving "line" microelectrodes are the principal experimental tools used in these studies. The dependence of electron hopping rate on orientation of the donor- acceptor pair in these organized monolayers will be determined. The effects of hydrodynamic coupling and viscosity of the interfacial layer on the diffusion of surfactant molecules on the water surface will be investigated as well. This information will help to develop an understanding of molecular and electron transport through biologically important membrane systems. Molecular monolayer assemblies formed at the air/water interface are the focus of the research of this project. The lateral motion of electrons and surfactant molecules in these model systems will be explored using a variety of optical and electrochemical methods. This information will be useful for developing models of membrane transport of importance in biological and electroanalytical systems.